Environmental Solutions in a Jar; Sequential Batch Reactor

The goal of this proposal is to develop a stimulating laboratory program for students in the College's Ecology and Environmental Technology (EET) program. The acquisition of a bench scale Sequential Batch Reactor system allows students to observe and analyze microbial populations and evaluate the effects of nutrients and other environmental parameters on biochemical processes within the reactors. Kinetic constants of the processes may also be determined, providing for the construction of predictive mathematical models. The bioreactors allow students to use microorganisms as models to demonstrate basic scientific principles, and learn about the application microorganisms and bioreactors in the management of wastes.